Modeling the Blink Cycle and Lipid Dynamics in the Tear Film

In this project, we will study the dynamics of the human tear film via a hierarchy of mathematical models with increasingly challenging aspects of the tear film. The hierarchy will include film surfaces with and without surfactant effects, with surface tension, and with slip on the eye surface. The models are based on lubrication theory and the resulting high-order nonlinear partial differential equations will be solved using analytical and computational methods. The results will be closely compared with in vivo measurements of the tear film thickness. Currently, a finite-difference spatial discretization together with backward-differentiation-formula software for numerically solving ordinary differential-algebraic equations (Daspk) is being used to solve the simplest of our models; two new computational approaches will be developed as well. One new approach will use radial basis functions as a basis for the method. The other will modify a moving overset grid method involving the software package Overture, which interpolates between boundary fitted finite volume grids at the edges of the domain and a rectilinear grid in the interior of the domain.

As of 1998, up to 10 million Americans required the use of artificial tear preparations and dry eye syndrome (DES) accounts for a high percentage of visits to ophthalmologists. Recent reviews on the subject call for a better understanding of the tear film to improve treatments and products for DES. This project will develop new mathematical models for the human tear film and will develop new computational methods to solve these problems. The computational methods will be developed jointly with mathematicians at Lawrence Livermore National Laboratory and University of Delaware professors and students. The results will be closely compared with in vivo measurements of tear film thickness dynamics made in the College of Optometry at the Ohio State University. The impacts of these results will be twofold. First, we will provide new quantitative understanding of the tear film for optometrists and ophthalmologists; we hope it will help improve treatment for DES. Second, the computational methods will be broadly useful in solving difficult time-varying problems in moving non-rectangular geometries. In accomplishing these goals, we will train PhD students in multidisciplinary applications of mathematical modeling and computational mathematics.